Computer Enhancement of Research in Undergraduate Experimental Psychology

9352754 Melvin This project allows the integration of a computer-based experimental psychology laboratory. The students conduct, analyze, and write reports on experiments as well as write short research proposals. The project also integrates ongoing faculty research into the student laboratory and permits the construction and use of computer tutorials on the basics of experimentation. The project is expected to impact psychology majors and upper-level non-major students. ***